Synthesis and Properties of Narrow-Band Materials

The goal of this research is synthesize and measure properties of high temperature superconductors. In general, it is proposed to extend previous copper-oxide studies to more complex systems and investigate whether a reduced Madelung energy allows for a cross- over from more ionic to covalent bonding in the superconducting phase of the n-type superconductors. Specifically, eight topics associated with narrow-band phenomena in solids are addressed: 1) the transition from a superconductor to a conventional metal; 2) the critical feature of high temperature superconductivity in n- type superconductors; 3) measurements of frequency of charge fluctuation in systems below 150 K; 4) use of low-temperature synthetic procedures to make metal oxides with unusual valence states; 5) study of narrow-band phenomena in vanadium oxides; 6) investigation of low-spin vs. high-spin configurations in cobalt compounds; 7) examination of overlapping redox potentials in solids; and 8) exploration of variation of properties of monochalcogenides and pnictides due to the placement of redox couples with respect to the valence-bond edge. The ultimate aim is to pin point what is the essential confluence of properties that makes possible the high temperature phenomenon. There is no consensus as to the mechanism responsible for high- temperature superconductivity in copper oxides, even six years after the discovery of the phenomenon. This proposal addresses this issue on a relatively broad front by bringing together experimental techniques and conceptual thinking from both chemistry and physics. In general, it is proposed to extend previous copper- oxide studies to more complex systems. Materials exhibiting narrow-band phenomena are prepared and characterized, and eight topics are addressed to pin point what is the essential confluence of properties that makes possible the high temperature phenomenon.